Experimental and Theoretical Investigations of Organic Reaction Rates and Mechanisms

Dr. Kendall N. Houk, of the Department of Chemistry at the University of California, Los Angeles, is supported by the Organic Dynamics Program to carry out experimental and theoretical investigations of organic reaction rates and mechanisms. Using several levels of theory, but with particular focus on density functional theory (DFT), Dr. Houk will examine a number of problems of chemical and biological importance, including the femtosecond dynamics of pericyclic reactions, the stereoselectivity and isotope effects in vinylcyclopropane-cyclopentene rearrangements, the dynamics and anomalous activation parameters of carbene rearrangements, and aromaticity and bond localization in cyclocarbons and novel non-alternant polycyclic aromatics and anti-aromatics. Studies of the origins of stereoselectivity in biradical reactions and of the use of DFT to probe biradical surfaces will also be carried out. Explorations of biological catalysis and transition structures in enzyme- and antibody-catalyzed reactions will lead to the development of synthetic enzyme mimics. Theory and experiment play symbiotic roles in chemistry - experiments lead to new observations, theoretical work is often required in order to develop an understanding of these observations, and the resulting theories then often lead to proposals for additional experimentation in order to test their validity. Professor Houk and his collaborators will direct theoretical and experimental studies toward the elucidation of a number of central reaction processes in organic and biological chemistry, including the complex issue of how enzymes effect chemical transformations. These studies will lead not only to a fundamental level of understanding of these important processes, but also to the discovery of new reaction chemistry predicated on the theoretical findings. The studies of biological systems, for example, will lead to the development of synthetic enzyme equivalents, compounds designed and synthesized to effect chosen molecular transformations in a highly selective manner.